21st Century Research-Cyberinfrastructure for MSIs through the Minority Serving - Cyberinfrastructure Consortium (MS-CC): A phased approach to engage the Missing Millions

This project expands access to the cyberinfrastructure necessary for research relevant to underserved institutions. In collaboration with Internet2, through a Cyberinfrastructure Center of Excellence Demonstration Pilot award, the project provides cyberinfrastructure-focused professional development opportunities, advocacy, and community engagement. This project further accelerates cyberinfrastructure-centric research capacity by taking an approach that can become a repeatable model that drives transformational change in research cyberinfrastructure on a wide range of campuses.

Through Proof-of-Concept Grants (PoCGs) and three shared Tiger Teams, Cyberinfrastructure, Stakeholder Alignment, and Research and Education, the project is taking the necessary steps to address key challenges. The PoCGs support the funding of key cyberinfrastructure technology investments (e.g., network services, data storage) as well as local capacity for facilitating researchers and educators in their identification and pursuit of local and external cyberinfrastructure resources for research and STEM education activities. The Tiger Teams provide facilitation and capability building support for these investments, conducting campus-specific cyberinfrastructure assessments, as well as the expertise to drive implementation of cyberinfrastructure plans and engagement with the wider research and education community.

This project is a prism and change agent that advances strategies and programs to directly engage and support the 21st century digital STEM workforce by advancing the important research and education work of a broad range of underserved institutions.